Presidential Young Investigator Award: Quantum Optics Experiments Utilizing Laser Cooling and Trapping (Physics)

Research will be undertaken in the field of laser cooling and trapping, particularly in studying the interactions between atoms in this ultra-low energy sub-milli Kelvin temperature regime. These include direct (collisional) interactions such as associative ionization, radiative association, and charge exchange and indirect radiation effects such as super-radiance and radiation trapping. One project is to create a sample of ultra-cold dense Rydberg atoms and trap them using DC electric fields. It may be possible to observe a phase transition (Mott transition) from an insulator to a metal when the size of Rydberg atoms becomes a significant fraction of the average interatomic spacing.